CAREER: Understanding Non-equilibrium Electro-Thermal Transport in Nanoscale Quantum Systems

Metal nanoparticles often serve as catalysts in chemical manufacturing. They use light to promote chemical reactions. However, the details of how they work remain unclear. The reactions may be driven by heat or by energetic electrons generated when light hits the particles. Using new nanoscale thermal measurement tools, this project will uncover the mechanisms underlying the performance of metal nanoparticles. The results will improve catalysts that can use sunlight to drive chemical reactions with greater efficiency and with better control over the final products. This, in turn, will enable the design of more efficient energy conversion technologies. The project will contribute to workforce development by training students in advanced nanotechnology and measurement techniques, by providing hands-on learning to engineering education, and by engaging undergraduate and high school students in research.

This project will directly measure and distinguish between the electron and lattice (phonon) temperature fields within individual nanoparticles and their supporting structures under resonant plasmonic excitation. To achieve this, the project will apply a novel in situ measurement technique called Two-Temperature Scanning Thermal Microscopy that is capable of simultaneous, nanometer-resolution mapping of electron and phonon temperatures. The research will quantify the nanoscale heat source density generated within individual nanoparticles, extract the local electron–phonon coupling rate governing energy exchange between subsystems, and measure the interfacial thermal resistance between nanoparticles and their supporting substrates, which collectively control heat dissipation pathways. The study will further investigate the role of multi-particle interactions, near-field coupling, and geometric and quantum confinement effects on energy transport and local temperature rise in nanoparticles. In addition, the project will explore thermal engineering strategies by tailoring nanoparticle geometry and support interfaces to control energy flow and enhance photocatalytic performance. Experiments will combine controlled nanofabrication, optical excitation, and in situ thermal measurements with reaction kinetics to establish quantitative relationships between nanoscale non-equilibrium electro-thermal transport processes and photocatalytic reaction rates. These results will provide a predictive framework for the informed design of next-generation energy conversion materials and microelectronics, especially systems that leverage quantum confinement of energy carriers combined with highly non-equilibrium transport to achieve high performance.